Chautauqua Short Courses for College Faculty

This project will provide partial support for a series of short courses on topics of current interest to college and university science faculty. The course presenters are scholars at the frontiers of their disciplines who meet intensively for several days with faculty to communicate new knowledge, concepts, and techniques which will enhance college instruction. The national program will offer about 70 courses per year at locations in the various regions of the country. Also, some courses will be offered at special discipline-related sites. Included will be topics of interest to faculty in mathematics, the natural and social sciences, and engineering. The program will be evaluated for constant improvement of its service to faculty. It will update and enhance the teaching of an average of some two thousand college and university faculty each year. In addition to NSF support, participants and their institutions will contribute about three times as much to the operation of the project.